Upgrade of an X-Ray Diffractometer

9317414 Herrick This award from the Chemistry Research Instrumentation and Facilities Program will assist the Department of Chemistry at the University of Oregon-Eugene in the purchase of an upgrade of its existing x-ray diffractometer. This equipment upgrade will enhance research in a number of areas. Among these projects are those which describe structural studies of organic molecules of biological relevance, inorganic complexes pertinent as models for magnetic materials and catalysts, and solid state inorganic materials of technological interest. In addition to serving researchers within the Chemistry Department, an upgraded instrument will enjoy increased use by the entire regional science community. %%% The x-ray diffractometer is used to make accurate and precise measurements of the full three-dimensional structure of a molecule. The information obtained gives the precise values of all the bond distances and bond angles of a given molecule and it gives accurate information about the spatial arrangement of that molecule relative to the neighboring molecules. ***